CAREER: Manufacturing-Driven Geometric Analysis and Prototyping: An Investigation of Computational Manufacturing

This project focuses on the development of computational manufacturing that integrates computational geometry, surface error analysis, machining principles, optimization techniques, and computer graphics for multi-axis complex surface machining. The research focus will include the development of a robust complex surface geometry interrogation engine and the generation of free-form tool paths for removing material from the stock, while avoiding local and global interference. The education focus will include the development of a rapid response manufacturing practicum as a core of an undergraduate manufacturing engineering curriculum. A lab will be developed to incorporate computational manufacturing and NC complex part machining in the undergraduate manufacturing core courses. An innovative multimedia guide to manufacturing processes will be developed for distance learning. The development of computational manufacturing as a new paradigm for generating interference-free, multi-axis machining paths directly from a CAD representation of the object provides a science based approach for solving complex part machining planning problems. There is a strong synergy between the research and education plans.